Detailed Model Aggregation and Robust Decentralized Control of Large Power Systems

This project relates to the enhancement of the stability of large electric power systems. The emphasis is on the stability and control of large systems. The methodology used is that of singular perturbation theory. It is expected that the results will be directly applicable in power system controls both as software and hardware. Also, it is expected that a better understanding of inter-area oscillations in interconnected power systems will be obtained.